Automated Intrusive Algorithms for Numerical Simulation of Partial Differential Equations via Software-Based Frechet Differentiation

Abstract: Automated intrusive algorithms for numerical
simulation of partial differential equations via software-based
Frechet differentiation

Computers were invented to automate tedious and error-prone numerical
computations; ironically, programming computers is itself a tedious
and error-prone task. Given the importance and expense of developing
scientific simulation programs, it is worth studying whether computers
can improve the development, as well as the execution, of these
programs. This project focuses on the open-source software Sundance,
which automates transition from high-level mathematical abstractions
to high-performance, parallel partial differential equation (PDE)
simulation code, freeing users from the burden of low-level
programming. This approach can reduce simulator development time from
months or years to days or even hours. Less obvious, but equally
important, benefits of basing software firmly on mathematical
abstractions are that internal performance improvements can be
automated, and that intrusive algorithms -- algorithms that require
transformation of the equation set to produce nonstandard operators --
can be implemented much more easily because such transformations can
be carried out automatically.

This is enabled by formulating programming tasks as mathematical
problems whose solutions are then automated. Central to this is a
theorem establishing Frechet differentiation as a ``bridge'' between
high-level symbolic programming and high-performance numerical
computing. Previous work has laid the foundations for this; this
extends those results work to other aspects of PDE simulation and to
non-PDE paradigms such as density functional theory (DFT), and
investigates intrusive preconditioners for coupled multiphysics
problems. The combination of automatic high performance and
the ready availability of efficient intrusive algorithms for
preconditioning, sensitivity analysis, and PDE-constrained
optimization makes it possible for a high-level, general-purpose tool
such as Sundance to actually outperform hand-coded special-purpose
simulators. The ready availability of advanced optimization
algorithms with finite element discretizations for nonlinear coupled
systems, all with efficient implementation and a short development
cycle, will be transformative to how computational scientists work.